Symposium on Highly Branched and 3-Dimensional Polymers at Interfaces; ACS Meeting; March 26-31, 2006; Atlanta, GA

The purpose of this symposium is to provide a forum for scientists from different fields
of polymer materials science for discussion of fundamental results and prospective
application of non-traditional, highly-branched and 3-dimensional macromolecules at
various engineered interfaces. The symposium will focus on the latest advances in new
architectures, interfacial assembly and properties, and emerging applications for
dendrimers, hyperbranches, stars, brushes, rod-dendrons, nanoparticles and 3D
macromolecules at surfaces and interfaces.
A broader impact of this symposium is anticipated via enhanced training of graduate
students and younger researchers who will be partially supported and will attend this
symposium and participate in oral and poster sessions and discussion with prominent
invited speakers who are committed to attend this symposium.